Developing Scientists in Psychology

A year-long Developing Scientist Program for seniors in psychology is enriching the scientific training of talented psychology majors. To implement the program, the college is establishing a psychological laboratory equipped with five Apple IIGS computers and an interfaceable biofeedback system. Research projects are being carried out in the traditional experimental areas. The students are receiving advanced seminar and one-on-one instruction in hypothesis formulation, design, and execution of experiments, and in data analysis and interpretation. They are each performing one project per semester for two semesters and will prepare experimental reports in journal form describing the projects. The program is enhancing the skill of the students in applying the scientific method to contemporary research problems in psychology, leading ultimately to them making significant contributions to the fields of psychology.